"Computations in Natural and Artificial Parallel Systems" to be held September 27-30, 1990, at the Beckman Institute University of Illinois at Urbana-Champaign

This award will provide partial support for the conference Computations in Natural and Artificial Parallel Systems. This conference is interdisciplinary in nature, bringing together researchers from several different fields to focus on parallel computation systems, comparing the parallel circuit in the brain with that of parallel computer systems. The conference with be held September 27-30 at the Beckman Institute in Urbana-Champaign, Illinois.